POWRE: Molecular Determinants of LR Asymmetry in Murine Branchial Arch Development

0074424
Smoak

The objective of this project is to identify molecular determinants of left-right (LR) patterning in the branchial arches of the mouse embryo. A mouse Fgf8 mutant that displays LR patterning defects will be used as a model system for evaluating the potential role of candidate genes. Specifically, cDNAs will be identified that are uniquely expressed in left vs. right and Fgf8 mutant vs. wild-type murine branchial arches. Expression domains of candidate genes will be evaluated in normal and Fgf8 mutant embryos to ensure their relevance to branchial arch development. Unique cDNAs will then be cloned, sequenced, and identified by comparison with a gene bank database. As a POWRE award, this project will provide a unique opportunity for the PI to obtain hands-on training in a laboratory that focuses on molecular mechanisms of heart development. This experience will provide a solid foundation in the tools and skills of molecular biology and thereby allow the PI to change research focus, which will be critical to her career advancement